Logic-Based Approaches to Learning and Knowledge Discovery

Logic forms a basic framework for artificial intelligence, including machine learning and knowledge discovery in databases. Predicate logic, which is used by several machine learning systems, poses both open problems of learning complexity and questions that do not arise in other approaches to learning. There are algorithmic approaches to knowledge discovery in databases that suggest several open problems for propositional and predicate logic, and complexity theory. Some of the learnability issues specific to predicate logic that will be studied are the role of background knowledge, the efficiency of the algorithmic techniques of logic learning, such as least general generalizations, the complexity of learning multiple predicates, and types of noise that either are specific to predicate logic, or appear to behave differently for predicate logic. The first two issues will be studied using the producthomomorphism method. This technique, introduced by one of the PI's and developed further by both PI's, enables the use of combinatorial tools in constructing learning algorithms. One extension to be studied is learning certain broader classes of logic programs, which are useful for practical applications. The complexity of the general product-homomorphism problem will also be investigated. In the area of noise-tolerance, one topic to be studied is the complexity of learning Boolean conjunctions in noise models that are more difficult for the learner than random classification noise. This could lead to extensions of previous work of the PI's on learning noisy logic programs. Expanding the scope of learning problems studied in learning theory, the project will construct algorithms for relations definable in a finite model by restricted classes of formulas, such as formulas with a bounded number of variables. This continues the model theoretic approach to learning, studied earlier by one of the PI's. Another, related family of problems involves classes of atomic f ormulas satisfying first-order constraints. In knowledge discovery in databases, a logic- based approach is to find the theory of the database, which means identifying all interesting statements that hold in the database, using an appropriate notion of interesting statement. Algorithmically, this requires polynomial-delay listing algorithms for different classes of objects, such as the maximal frequent sets of a 0-1 matrix. The project will study the possibilities of gaining efficiency by taking into account the structure of the database. This leads to questions about restricted classes of threshold circuits, and generalized versions of the minimal hitting set listing problem. The methods to be used are primarily combinatorial, such as products and homomorphisms of graphs, and model- theoretic games. This project will contribute to the understanding of the limits of efficient learnability in predicate logic. It will also develop new algorithms that may be useful for practical machinelearning systems, and contribute to the methodology for tolerating noisy data. The overall goal of this work is to gain a better understanding of the computational complexity aspects of learning using logic.